New Symplectic Methods in Low-Dimensional Dynamics

Hamiltonian systems are a mathematical model for real-world physical systems that model a wide range of fundamental phenomena, such as motion of particles in magnetic fields and the motion of planets and other bodies in our solar system. This project aims to develop new mathematical techniques to resolve four long-standing questions in the theory of Hamiltonian systems. These advances have potential applications to a large class of physical systems of national interest, such as those that arise in space mission design.

More precisely, this project addresses the following four problems: Arnold’s conjecture on magnetic geodesics on Riemannian surfaces, the distribution of periodic orbits for generic Hamiltonian systems, the classification of pseudo-rotations of the disk, and the existence of invariant subsets for volume-preserving flows on three-manifolds. Each problem will be attacked via new techniques in the theory of holomorphic curves. This is a subfield of symplectic geometry with a strong record of success in Hamiltonian dynamics. Even partial solutions of these problems will have applications to other problems in Hamiltonian dynamics.